Polarized Ultra-Cold Neutron Transport for UCN-A Experiment

Nuclear beta decay was important in motivating the Standard Model, and
it continues to be of importance in searches for physics beyond the
Standard Model. The simplest system for studying beta decay is the
neutron, where there is a long history of increasingly accurate
measurements of the parameters that characterize the decay. By
measuring the neutron's lifetime (from the Ft value) and the neutron's
beta asymmetry A, one has enough information to independently determine
the weak vector and axial-vector couplings, GV and GA. Although recent
accurate measurements of the neutron lifetime are in good agreement
with each other, the same cannot be said for measurements of the
neutron's beta asymmetry A. Since 1985, there have been four accurate
(combined statistical and systematic uncertainty of about 1% each)
measurements of A. Unfortunately, the agreement between these four A
measurements is poor.

An approved Los Alamos experiment will again measure the A coefficient,
this time utilizing Ultra-Cold Neutrons, dramatically reducing
systematic errors otherwise present due to beam-induced backgrounds and
incomplete polarization. The key features are 1) the ability to port
the neutrons to a significant distance away from their production site
(using total external reflection), 2) vetoing events when the beam
pulse is on target (capitalizing on the pulsed production method), and
3) obtain 100% polarization using an axial magnetic field (where
neutrons of the wrong spin do not have enough kinetic energy to
overcome the mu.B potential).

Our group at Virginia Tech has responsibility for UCN transport for the
Los Alamos experiment, the fast DAQ, and experimental coordination.
The critical component of this system addressed by this proposal is the
coating for transporting polarized neutrons. We have shown
pulsed-laser-deposition of diamond films is suitable. At Virginia
Tech, an existing excimer laser has been re-commissioned to produce
suitable films. A system for coating both the guide tubes and central
decay tube of the spectrometer has been developed. The successful
campaign to make suitably coated guides for polarized UCNs has an
impact, not just to this experiment, but to planned future experiments
as well.